Workshop: Developing the US Initiative in Continental Scientific Drilling

Drilling into continental rocks provides unique information, otherwise unavailable, on many areas of fundamental and exciting science: exact time-series historical records of paleoclimate and the magnetic field, key observations at depth of seismic, volcanological and impact phenomena, information on the geobiosphere, and questions of societal importance. This workshop will bring members of the continental scientific drilling community together to implement recommendations from a previous workshop that emphasized the scientific advances possible only through drilling. It is intended to engage not only members of the CSD community but also representatives of parallel entities and overlapping communities and representatives of funding agencies in a discussion directed at enhancing the drilling community and planning for future research, necessary facilities, and funding support.